Research Experiences in Geometry and Topology

We propose to engage 12 undergraduates in research during the three summers 98-00. The research will be focused in the areas of differential geometry and geometric topology. There will also be a component of some parts of mathematical physics, especially general relatively, related to differential geometry. There will be five Tulane University faculty members involved with the project: Morris Kalka (Coordinator), Slawomir Kwasik, James Rogers, Frank Tipler and Dagang Yang. Each faculty will supervise the research of 2 undergraduates, who will work on a joint project. The undergraduate participants will be chosen from a pool which will be gathered from nationwide advertising.